Flow and Fracture of Ice

This award is for support for a research program of in-situ synchrotron x-ray topographic studies of both undeformed single crystal and polycrystalline ice and dislocation structures in mechanically-tested bulk specimens. The goal is to provide fundamental information on dislocation behavior that will enable modeling of the deformation of ice to move from the phenomenological to the micromechanism based. In-situ x-ray topography will also be used to examine the effects of UV radiation on dislocations in both pure and doped single crystal ice. This work will also contribute to further understanding of the effect of UV radiation on the mechanical properties of ice, i.e. the photoplastic effect.